A Planning Grant Proposal for the Establishment of a NSF Industry/University Cooperative Research Center (I/UCRC) on Intelligent e-Maintenance Systems (IMS)

This award is to hold an Industry/University planning meeting for a proposed research site at the University of Michigan which will be a part of the I/UCRC for Intelligent e-Maintenance Systems at the University of Wisconsin-Milwaukee. The planning meeting will examine the organizational feasibility and economic viability of the research site. A portfolio of initial research projects will be determined. New members will be recruited during the tenure of the award.